Conference: Gordon Research Conference and Seminar on Flow and Transport in Permeable Media

The award supports U.S.-based scientists attending the 2026 Gordon Research Conference and Gordon Research Seminar on Flow and Transport in Permeable Media. The scope of science is highly interdisciplinary and covers a range of research topics. The topics include underground hydrogen storage, critical minerals for energy storage, artificial intelligence methods, and geothermal energy. The linkages between the geosciences and material science and mathematics provide a unique meeting scope. Topics to be covered in the conference address national priorities, including energy security and artificial intelligence.

Scientists and engineers from multiple sectors will discuss and exchange recent developments and unmet research needs across disciplines. The conference structure emphasizes presentations of new, unpublished work, followed by open discussion. The event attracts a wide range of participants spanning disciplines that often do not interact. Meetings on emergent interests will facilitate interaction among junior researchers and those established in academia, industry, and other careers.